Mathematical Siences: Probability Theory

This group of researchers will work on various aspects of Markov processes and infinite particle systems. Specific problems include first passage and bond percolation, particle systems in random environments and functionals of Markov processes. Percolation and particle systems in random environment provide many useful models to problems in physics and biology. The tools used involve partial differential equations, random graph theory and Markov processes.